Molecular Shape Selective Transport in Zeolites

Effective diffusivities in zeolites show unpredictable variations with partial pressure and temperature, sometimes exhibiting maxima or minima, as well as having measured diffusivities which vary over orders of magnitude when the measurement technique is changed. This project seeks to see if these discrepancies can be resolved if we treat the sorbate in the zeolite as though it were distributed between two states, with adsorbed species at one type of site mobile and species adsorbed at another type of site immobile. It is proposed that these two types of sorbed molecules, together with unabsorbed molecules in the pores of the zeolites, make separate contributions to the observed diffusion coefficient, which, with their different dependencies on temperature, and the temperature dependence of the distribution of the sorbate between states, should explain the observed variations in diffusivities. Zeolites are important to numerous industrial processes in which adsorption or heterogeneous catalysis occurs. One of the most important aspects of zeolites is that they are able to add selectivity based upon size and molecular shape to selectivity based upon differing affinities for the base surface of the zeolite material. It should be possible to design processes which would take advantage of the differences in diffusivities within the zeolites to improve conversions or to increase selectivities; a better understanding of the diffusion process in zeolites will help development in this area. Experiments at carefully selected partial pressures and temperatures have been selected for specific sorbate molecules so that the proposed explanation can be tested experimentally. These experiments will be interpreted with the help of a mathematical model of the proposed transport process.